Theory and Applications for Infinite Dimensional Dynamical Systems

PI: Peter Bates, Brigham Young University
Co-PI: Keining Lu, Brigham Young University
DMS-0200961

Abstract:

This project will develop the geometrical theory of invariant manifolds and
foliations for semiflows in Banach space with emphasis on how this can be
applied to important areas of science. Of particular interest are how one
may establish the existence of these structures knowing that good
approximations exist in some sense. Applications which will be addressed
include analysis of lattice dynamical systems, the existence of modulated
waves in fluid models, the form and dynamics of vortices in superconducting
materials, the form and dynamics of material phase boundaries, including
those with random perturbations in the driving forces, and the development
of good computational algorithms.

Since most physical systems are highly complex, it is usually impossible to
solve the equations which are proposed to describe and predict the relevant
physical phenomena. Even if it were possible to solve one of these
equations, the imprecision in measurement and our imperfect understanding
of the actual physical laws may call into question the meaning of the
solutions. This project will develop a theory whereby, under certain
conditions, one can describe the nature of solutions and guarantee that the
physical system behaves according to this description to a reasonable
degree of accuracy. Special attention will be given to equations describing
phenomena in material science, including phase transitions and
superconductivity.